Industry/University Cooperative Research Center for Microcontamination Control

9312553 O'Hanlon This award provides funding for the first year of a three-year continuing award under the "Self-Sufficient Partnership for Research" Program at the University of Arizona's Industry/University Cooperative Research Center for Microcontamination Control. The Center continues to meet the renewal criteria requirements of the I/UCRC Program. Additional funds are provided by the Department of Energy's Environmental Restoration and Waste Management to obtain a non- voting membership in the Center. The Program Manager recommends the University of Arizona be awarded $40,000 for the first year of a three-year continuing award. An additional $10,000 is recommended for one year with funding provided by the U.S. Department of Energy. Near the end of each 12-month period, the Program Manager and/or the Division Director of the Engineering Education Centers Division will review the progress of the Center on a number of renewal criteria requirements, including the following: 1) the extent to which the university/industry interaction is developing; 2) the extent to which the support base is developing; and 3) the extent to which a robust research program is developing. If the review is satisfactory, the Program Manager will recommend support for the next period of this continuing award.